Bridges to Engineering Science: Teaching Teachers (B.E.S.T.T.)

PROPOSAL NO.: 0230505
PRINCIPAL INVESTIGATOR: Patty, Thomas
INSTITUTION NAME: University of Tennessee Chattanooga
TITLE: Bridges to Engineering Science: Teaching Teachers (B.E.S.T.T.)
NSF RECEIVED DATE: 06/04/2002

Abstract

The University of Tennessee at Chattanooga is designing a coordinated, comprehensive
program to increase the number of students entering engineering fields in the targeted
Tennessee/Georgia area. By including and impacting both pre-service and in-service
teachers at grades K-12, this program, Bridges to Engineering Science: Teaching
Teachers (B.E.S.T.T.), has the potential to affect the over 115,000 students in grades K-
12 in thirteen school systems in Tennessee and Georgia identified as potential partners.
The program will include a partnership between the Colleges of Engineering and
Education; interaction among faculty and students of the colleges and the thirteen
targeted school systems; development of high quality, self contained, apparatus based
engineering science experiments and curriculum units which meet the education system
goals and educational standards; development and dissemination of teaching materials on
hands-on, age appropriate, engaging engineering science units for grades K-12; special
targeted inclusion of groups currently under-represented in engineering; and formative
and summative assessment at all stages of the project.